Ecological Detection and Disease Outbreaks

Mangel
The study of disease using mathematical models has a long
and rich history. Much interesting and new mathematics has been
motivated by disease, because the problems are inherently
nonlinear and multidimensional. On the other hand, the emergence
of new diseases, the re-emergence of older diseases, and the
potential of bioterrorism require that the mathematics be not
only interesting and new, but applied and applicable. In most
cases of disease outbreak or emergence, learning about the
parameters of the disease will occur as it progresses. Thus, the
questions sit at the intersection of the biology of disease,
modeling, and analysis of data. In this project, the PI
nvestigator seeks to apply the process of ecological detection,
in which different models compete as explanations of process and
the data arbitrate the outcome of this competittion, to emerging
or re-emerging disease. The mathematical theory of disease leads
to fundamental characterizations such as the basic reproductive
rate of the disease, the critical number of susceptibles for
infectives to initially spread, and the number of infectives in
the population at the time that the first infection/death is
discovered. These in turn depend on fundamental population
parameters, and those are the focus of the proposed work. Methods
are developed so that, as a disease progresses, one can learn
about the transmission coefficient of the disease, the
distribution of susceptibles, the level of aggregation in
encounters between susceptibles and infecteds, and the level of
detail needed in the models, for purposes of both understanding
and prediction. These methods are based on analysis of
appropriate differential equations, computer simulation,
stochastic dynamic programming and Bayesian statistical updating.
Furthermore, real populations exist in networks, rather than as
randomly mixing individuals, about which two kinds of questions
can be asked. First, given a specific model for the transmission
of disease, what kind of network is created and what are the
properties of that network? Second, given a network of social
interactions, what can be said about the dynamics of the disease
on this network? Both sets of questions are investigated.
The proposed work provides new conceptual and operational
tools in dealing with emerging and re-emerging diseases such as
HIV/AIDS, epidemic behavior of hepatitis C, the outbreak of
foot-and-mouth disease and BSE in the UK, the potential of
smallpox as a bioterrorist agent, and malaria. The project also
provides training to the next generation of applied
mathematicians and mathematical biologists, who -- more than any
generation before them -- are keen to solve practical problems in
the real world. It thus represents science in the national
interest at two different levels.